Integrating Personal Computers into Electrical Engineering Laboratories

This funding support equipped the Advanced Circuits Laboratory with eight laboratory workstations. Each workstation includes a Zenith personal computer, ASYST data acquisition and analysis software, a General Purpose Interface Bus (GPIB) cluster of instruments, and an analog-to-digital/digital-to-analog conversion subsystem. This laboratory is shared resource among a number of required courses in the electrical engineering core curriculum. This award is being matched by a greater amount from the principal investigator's institution.